Kobe Reconstruction: Community Planning, Design and Construction Practices

*** 9632508 Preuss This project focuses on reconstruction following the January 17, 1995 earthquake that struck Kobe, Japan. The magnitude of this disaster was such that the reconstruction process is extremely complex, and there are many lessons to be learned in almost every aspect of earthquake response, recovery and reconstruction. The study will give primary attention to physical reconstruction from a multi-disciplinary perspective (urban planning, architecture and urban design, and engineering) and will compare and contrast the Kobe reconstruction experience with recent experience and practice in the United States. Three basic levels of reconstruction will be investigated: (1) replacement of individual buildings on the same site, (2) replacement of groups of buildings on the same site within the existing general street pattern (residential tracts), and (3) replanning and replacement of neighborhoods involving changes in street alignment and creation of different spatial layouts (new town complexes).***